CAREER: Using Numerical Relativity as a Tool for Discovery: Astrophysics, Gravity and Education

Gravitational wave physics is on the verge of becoming an observation-driven science thanks to the Laser Interferometer Gravitational-Wave Observatory (LIGO) and its partners. In addition, numerical relativity has already demonstrated its great potential as a tool of discovery for the strongest sources of gravitational radiation. This award will support an integrated program of research and education built upon these two pillars: gravitational wave observations and numerical relativity. The research will focus on (1) coupling data analysis methods to gravitational wave source models drawn from numerical relativity simulations, (2) developing the next generation of source simulations that will interpret future events.

The broader impacts of this award include two components. (1) Graduate students will be trained to use numerical relativity as an astrophysical tool to prepare them to be leaders in the new field of gravitational wave astronomy. (2) The PI will collaborate with the LIGO Livingston Laboratory and Professor Brigg Ullmer of Louisiana State University to use video from numerical relativity simulations in an interactive kiosk designed by Dr. Ullmer. The kiosks allow for a hands-on approach to learning about gravitational waves and are planned to be located in Louisiana and Atlanta.